Workshop: Intelligent Software: The Interface Between Algorithms and Machines

We propose to arrange US participation in the workshop entitled "Intelligent Software: The Interface Between Algorithms and Machines", to be held on October 19-21, 2009 at the University of Edinburgh, hosted by the Centre for Numerical Algorithms and Intelligent Software (NAIS)[1], that will support research in the efficient application of algorithms to next generation computer architectures. The goal of this workshop is to bring together leading US and European researchers at the interface between computational science, applied mathematics, and computer science to discuss algorithms pervasive in the scientific applications community, and their implementation and deployment for evolving target architectures. By bringing together researchers working together across this divide, a scheme will be suggested with the goal of advancing computational science infrastructure so that it can live up to its full potential.